RIMI: A Proposal to Upgrade the Research Capability in Atomic, Molecular and Optical Physics by the Purchace of a Ring Laser and a RF Spectrum Analyzer

9550652 Hardy The proposed research would improve the research infrastructure in the atomic, molecular, and optical laboratories at Florida International University. A ring laser system and a radio frequency spectrum analyzer will be purchased. The ring laser system will provide a continuous wave, narrow line width, intense source of photons for use in three experimental programs. Cooling and trapping of metastable rare gas atoms will be used for a source of slow atoms for differential and integral scattering cross section measurements at low relative velocities. Laser radiation will be used for atomic beam deflection in time-of-flight studies of the dissociative recombination reaction. Beam deflection will be used for state separation and identification in measurements of the dissociative recombination reaction of the molecular ions of the rare gasses. Lasing without inversion and optical transparency will be studied in rubidium systems. Two graduate and two undergraduate students will participate in the proposed work. ***